Classical Knot Concordance and Problems in Four-Manifold Theory

Two knots are defined to be concordant if the connected sum of one with
the mirror of the other is slice: that is, if the connected sum bounds
an embedded disk in the four-ball. The set of equivalence classes
forms what is called the concordance group of knots, first studied in
the early 1960s. It is known that this group is countable, abelian,
and that it maps onto Levine's algebraic concordance group, which is
isomorphic to an infinite direct sum of cyclic groups of infinite order
and of order 2 and 4. The kernel of this map is infinitely generated.
A main goal of the proposal is the continued study of the concordance
group and relationships between three-dimensional properties of knots,
such as symmetry and genus, and their properties in the concordance
group. Specific topics include understanding the algebraic structure
of the kernel of Levine's map (in particular the part of the kernel
generated by knots of Alexander polynomial one), torsion in the
concordance group, and the splitting of Levine's homomorphism. To
pursue this study the principal investigator will develop and apply
methods coming from the theory of Heegaard Floer homology as defined by
Oszvath and Szabo. Other topics of study under the proposal relate to
the interplay between the fundamental groups of 4-manifolds and their
topological structure: for instance, a continued investigation of the
Hausmann-Weinberger invariant of a group, the minimal Euler
characteristic of a closed 4-manifold having that group as its
fundamental group, and its generalizations, will be pursued.

The goal of this proposal is the study of knots. From a
three-dimensional perspective, questions about knots have been studied
for over a hundred years. More recently it has been recognized that
the structure of a four-dimensional space, a four-manifold, is
connected to properties of classical knots that can be associated to
that four-manifold. A main focus of this proposal is the study of
those properties of knots that are of relevant to four-dimensional
topology; many of these properties are encapsulated in something called
the concordance group of knots. Questions regarding this concordance
group offer test cases and motivation for the further development of
techniques from general four-manifold theory. In addition, the study
of concordance brings to the fore new and fascinating questions in the
realm of classical three-dimensional knot theory, relating for instance
to questions of knot symmetry and genus.